SBIR Phase II: Energy Storage, Electrical Distribution, and Packaging for Wireless Sensor Networks

This Small Business Innovation Research Phase II Project targets development of a new approach
to building wireless sensor infrastructure — energy storage systems, electrical distribution, and
packaging - that allows dramatic miniaturization of wireless sensor nodes, eliminates most
restrictions on their shape and is environmentally-friendly. Accomplishing these goals requires
development of innovative new approaches to fabrication of mesoscale electronic circuitry and
thin film energy storage batteries. Laser-based approaches to making very fine feature
conductor patterns, vias, and mechanical structures in a variety of organic and inorganic materials
commonly used in the electronics industry will be utilized. New battery chemistry will also be
refined to allow fabrication of miniature, flexible, thin film batteries with energy storage densities
substantially exceeding those of any battery currently on the market. Together these innovations
will allow nearly an order of magnitude reduction in volume of wireless sensing devices.
Combination of the laser processing and battery technologies developed in this project will offer
an approach to miniaturization of almost any wireless sensor that is easily adaptable to most
sensor designs.

The broader impact/commercial potential of this project will be found in many areas of everyday
life. After an extended incubation period, wireless sensing networks are experiencing a surge of
market growth. A market opportunity for more than 100 million sensor nodes is projected for
2019. Potential applications come from areas as diverse as infrastructure monitoring for bridges,
roadways and pipelines, lighting and HVAC control in buildings, electrical metering, parking
management, patient monitoring, elderly care, seismic sensors, industrial process control, crop
water management, and home automation. In the health care area alone, wireless sensor networks
could potentially produce and estimated $25 billion savings world wide. Feasibility of many
potential applications will be strongly influenced by the availability of miniaturized sensor nodes
with suitable form factors that can be operated without maintenance for extended periods.
Targeting miniaturization and power sources, the proposed project addresses and solves key
historical bottlenecks in sensor network implementation. It will have a significant impact on
these large developing markets, as well as spin-off applications in medical and consumer
electronics.